Linking CWRUnet to the vBNS

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides partial support for two years for a DS-3 connection to the vBNS. Applications involve telecollaboration, enhanced utilization of remote resources, and real-time interactions with remote experimental and computational resources. Scientific Collaborating institutions include University of California, Santa Cruz, Johns Hopkins University, University of Arizona, NOAO, Oberlin College, NASA-Lewis Research Center, UC Berkeley, Stanford University, and Fermilab.